Technology Strategies in Undergraduate Mathematics Instruction

The Ohio State University is offering a two-week intensive workshop for undergraduate mathematics faculty, concentrating on the use of new technology in mathematics instruction. The workshop addresses the use of graphing calculators and software in precalculus instruction, the use of symbolic computer algebra systems in calculus instruction, and the use of numerical linear algebra software in basic matrix theory courses. The workshop introduces the tools to participants, provides opportunities for extensive hands-on experience in a laboratory setting, and encourages each participant to develop an extensive project which blends technological tools with relevant mathematics and curriculum development issues. The workshop is being offered twice during the summer of 1991 and twice during the summer of 1992 to 25 participants each session (50 each summer). Follow-up meetings will be held at the O.S.U. Technology Conferences scheduled for November 1991 and November 1992, as well as brief weekend meetings in spring 1991 and 1992. An extensive effort is being made to recruit participants from underrepresented groups and participants from colleges whose student population includes a large proportion of members of underrepresented groups.//